1992 Gordon Conference on Nuclear Chemistry; New London, New Hampshire; June 15-19, 1992

This grant provides partial support for the 1992 Nuclear Chemistry Gordon Research Conference, to be held at New London, New Hampshire, 15-19 June. The conference program will feature sessions on the interface between nuclear structure and nuclear reactions in addition to topics more traditional to the conference series.